Project MATHEMATICS! CD-ROM Research

9452762 Apostol This planning grant supports the determination of how best to produce interactive multimedia CD-ROM versions of existing and future modules of Project MATHEMATICS!, a series of professional broadcast-quality computer animated videotapes on various topics in basic mathematics at the secondary level. These topics range from geometry to trigonometry. algebra, and modeling. Information about multimedia playback hardware, software tools, design, production, and technical support is being gathered by examining existing production tools and software, attending seminars and conferences, interviewing and consulting knowledgeable colleagues and representatives of appropriate companies, and studying trade journals.